U.S.-Brazil Cooperative Research: Breaking of Discrete Symmetries in Many Body Systems

0112421
Mitchell

This Americas Program award will support Dr. Gary E. Mitchell, North Carolina State University in collaboration with Dr. Mahir Hussein of the Universidad de Sao Paulo in Brazil. The aim of the project is to study quantum chaos through measurement of a system that mimics chaotic behavior - acoustic resonances in quartz blocks.

By studying an experimental system exhibiting chaotic behavior, the researchers intend to address some open questions in quantum mechanics that may shed light on fundamental processes in nuclear physics. The project will take advantage of a recently established experimental program in Sao Paulo and combine the expertise of the US group in analyzing nuclear spectra for signatures of quantum chaos. The collaboration will have an educational component by promoting the exchange of graduate students and postdoctoral fellows.